PostDoctoral Research Fellowship

This award is made as part of the FY 2019 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Winston Leslie is "Periods of automorphic forms, relative trace formulas, and connections to geometry". The host institution for the fellowship is Duke University and the sponsoring scientist is Jayce Getz.